Upgrade of 500 MHz Console

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Ohio State University to acquire an upgrade of the console of an existing 500 MHz NMR spectrometer. This equipment will enhance research in a number of areas including the following: (1) The structure-function relationship of tumor suppressors, (2) Perforin-mediated cytolysis, (3) Chemistry and biochemistry of Vitamin A and its metabolites, (4) Reactions via ion-paired transition states, (5) Structure/property relationships in inorganic oxide glasses, (6) NMR conformational studies of glycosidase inhibitors, and (7) Compact domains in proteins. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies will be useful in areas such as polymers, catalysis, and biology.